Japan Long-Term Research Visit: Analysis of Mental Computa- tion Performance and Estimation Strategy-use Among Japanese Students and Curricular of these Topics in Japanese Schools

Under this award Professor Robert and Barbara Reys, Department of Curriculum and Instruction, University of Missouri-Columbia, will spend eleven months in Japan (due to commence in March 1991) based primarily at the Institute of Education, University of Tsukuba where they will work with Professor Nobuhiko Nohda. They will also spend considerable time at Joetsu University of Education where they will work with Professor Shigeo Yoshikawa. The focus of their research will be on mental computation and computational estimation. Specifically they will 1) assess the lavel of mentel computation skill s of Japanese students in grades 2, 4, 6, 8, 10; 2) determine the relatives emphasis on estimation and computation; and 3) identify highly skilled students and examine their thinking strategies. On the basis of such observations the principal investigators will modify the existing theoretical framework or generate an alternative which accurately models Japanese students.